Ecology Plus (Ecology+): Broadening Pathways to Ecological Careers through a Collective Impact Approach

Ecology Plus (Ecology+) is an NSF INCLUDES Launch Pilot project with a goal of increasing the participation of underrepresented minorities in a broad range of career pathways where ecology plays a role. This project recognizes that both innovative scientific research and wider societal participation are needed for effective and equitable solutions to environmental issues that directly impact societal well-being and national security. Both research and policy are enhanced by full participation of all sectors of society. Despite the existence of multiple programs over many years, barriers to the participation of underrepresented minorities in ecology persist. One overarching systemic issue remains critical: that insufficient connections among programs result in breaks along critical transition points in career pathways. Project activities will lay the groundwork by developing a regional approach to alliance-building that can be extended across the nation.

Ecology+ will use a collective impact framework -- characterized by a common agenda, shared measurement, mutually reinforcing activities, continuous communication, and backbone support -- to optimize career guidance and support for undergraduate students, graduate students and early career technical and professional scientists. Starting in the Washington-Baltimore region, key objectives of the project are to develop infrastructure for effective communications among partners with the capacity to expand nationally; map potential career pathways with associated sets of necessary competencies, opportunities and mentors, and; empower alliance participants to overcome institutional barriers and patterns of unconscious bias. Ecology+ will: a) establish an online mentoring platform; b) offer a career fair with motivational talks and guidance on individual career development plans; c) offer a series of relevant skills workshops; d) arrange research or internship experiences, and; e) facilitate awareness and networking opportunities with employers from agencies, business and nonprofit sectors. The value of Ecology+ lies in its comprehensive, integrated approach that will bring new partners and their resources into a transformative and systemic response to the key barriers affecting underrepresented minorities in science.